Astrophysical Applications of Microscopic and Many-Body Physics

This grant supports the group of F.K. Lamb, C.J. Pethick and D. Pines for continuing work on a wide variety of topics involving astrophysical applications of microscopic and many- body physics. The general area include fundamental properties of matter under extreme conditions, the physics of neutron stars, physics of accretion, and particle acceleration and nonthermal emission from astrophysical sources.